Acquisition of a Multi-User Ultracentrifuge for Cell-Molecular Biology Research

This proposal requests funds for the purchase of a preparative ultracentrifuge with rotors and a tube slicer kit. These instruments will be used by five investigators for research involving the isolation of chromosomal, plasmid, and chloroplast DNA as well as protein and RNA. The instrumentation will significantly strengthen the research capabilities of faculty in the area of molecular and cellular biology.